Research Initiation Award: Designing Hierarchical Storage Systems for Large Capacity and Low Latency

This project will investigate the integration of new storage technologies, such as flash RAM and helical scan tapes, into the storage hierarchy to take advantage of each technology's strengths while masking its weaknesses. Ground-breaking work in disk arrays has already been accomplished; in this project, the emphasis will be on other areas of the hierarchy, such as solid-state memories and magnetic tapes. For example, this research will investigate how to increase the effective capacity of solid-state memories to mitigate their higher cost. This research will take place in three stages: (1) measure new storage devices and trace current I/O workloads; (2) design and simulate new hierarchical architectures and algorithms; (3) implement a prototype hierarchical storage system and measure its operation under real use.